Democracy, Institutions, and Differential Paths of Economic Growth Among New World Economies: From Settlement to 1940

Kenneth L. Sokoloff Stanley L. Engerman Stephen H. Haber National Bureau of Economic Research SBR-9515222 The research will study how the relationships between political economy, economic institutions, and growth evolved and were manifested among the economies of the New World since settlement by the Europeans. Studies of modern expansion or economic growth in western Europe and certain overseas offshoots have argued that political democracy and economic growth tended to emerge together. This research will attempt to determine if this is true in North and South America. The economies of North and South America followed very different paths of economic and political development even though all enjoyed extraordinarily favorable environments with respect to natural resources per person, were established by the same small set of countries and were peopled by individuals from the same economic classes of the same populations. Despite these similarities at the time of settlement, they came to differ enormously with respect to the degree of inequality in political power, human capital, and wealth within their societies, the nature and structure of their economic institutions, as well as their realization of growth. Another reason why New World economies provide an attractive natural laboratory for the study of democracy, institutions and growth, is that they experienced a number of major alterations in political regime, like the achievement of independence, with associated changes (or failures to change) in economic institutions. This research will also examine in detail the impacts of changes in institutions due to such events, with a rigorous application of the comparative approach across economies, to improve the understanding of the role of institutions in economic growth.